Gordon Research Conference on Physical Metallurgy - Modeling of Materials and Microstructure for Optimal Properties and Performance, July 28 - August 2, 1996, Plymouth, NH

9612344 Storm This grant supports a conference on the modeling of materials and microstructure aimed at prediction of optimal properties and performance. Scientific subjects to be discussed relate to issues in manufacturing, continuum models, quantitative analysis of microstructure, prediction of materials properties, modeling of defects, atomistic models, and microstructural evolution. Scientific experts address these topics and the related modeling to develop a cross-fertilization of ideas. The Gordon Conference on Physical Metallurgy is held biannually. The $5.1K supports young researchers to attend the meeting. %%% Optimum synthesis and processing of complex materials requires knowledge of the effects of materials composition and structure on properties and performance. This demands continued efforts on combined modeling and experimentation to develop predictive capabilities in these areas. ***